Attractor Reconstruction from Experimental Data

A group of researchers centered at the University of Maryland will be involved in mathematical and physical research on chaotic dynamical systems, including in particular foundational questions of attractor reconstruction through embedding methods, and the recovery of the dynamics through the embedding method, which is critical to making the approach useful for experimental data. Other areas to be investigated are chaotic transients and the rigorous verification of computer- generated trajectories of nonlinear processes. The focus will be on development of computer algorithms for the analysis of data from experiments. The study of chaos and chaotic behavior has attracted attention over the past decade, and there are substantial opportunities for exciting interactions between theoreticians and experimentalists, so that new theoretical understanding can be transferred to the laboratory.